The Genesis of Cyclic Limestones and Unconformities in the Northern Bahamas: Recent Processes and Ancient Analogs

The shallow limestones of the Bahamas accumulate in pulses. Each rise of the interglacial sea floods the banktops and superimposes another sediment cycle upon the remains of the former. To understand the geologic record of the last few sealevel rises, and more importantly, to contribute to the understanding of cyclic limestones worldwide, this project is focussed on the latest Bahamian depositional cycles and the erosional surfaces that separate them in both dished interior and ramped margin lagoonal study sites. The present phase of the study will concentrate on (1) the carbon isotopic signal of the organic fraction as a function of the depositional environment, (2) the spectrum of paleoecological information imprinted upon banktop discontinuity surfaces as they are modified by sealevel encroachment, (3) the geological/ geochemical nature of the present sediment cycle and the subjacent rock cycles, and (4) the geological/geochemical criteria derived from the cyclic deposition/erosion couplet that can be applied to ancient analogs. %%% The shallow limestones of the Bahamas accumulate in pulses. Each rise of the interglacial sea floods the banktops and superimposes another sediment cycle upon the remains of the former. To understand the geologic record of the last few sealevel rises, and more importantly, to contribute to the understanding of cyclic limestones worldwide, this project is focussed on the latest Bahamian depositional cycles and the erosional surfaces that separate them in both dished interior and ramped margin lagoonal study sites.